Seeding the Future: Growing STEM Learning and Interest through Hydroponic Food Production

This pathways project from Boston College will test the efficacy of an intergenerational interdisciplinary hydroponics program involving curriculum development and activities at the Salvation Army's Kroc Center and the STEM Garden Institute for 4-6th grade youths and seniors. The primary research includes an examination of the efficacy of intergenerational interdisciplinary community based research. Additional goals of the hydroponic program include the examination of the ways in which urban community-based hydroponic programs foster motivation and self-efficacy, and how well youths and seniors understand the scientific inquiry process involving technology, economics and plant production.

The research design includes qualitative and quantitative methods. The project will evaluate the ways in which the instructors implement the program with youth and seniors. The project will also evaluate the effectiveness of the technologies associated with plant production and knowledge acquisition in the area of hydroponics from the development through the delivery of the plant products to sell at the local Farmer's Market. Interviews, focus groups and survey will be administered to seniors and youth throughout the project.

The project will disseminate a science inquiry based instructional guide for informal providers and youth who are involved with informal science education programs. The guide will focus on hydroponics with an emphasis on the electromagnetic spectrum, photosynthesis, pH, and nutrients, and electrical conductivity science concepts. More than 120-150 youth and 200 seniors will participate in the hydroponics program. Additional materials on the development of economic and business planning will be developed for the use of planning and setting up a Farmer's Market retail business. The materials will be available through the Salvation Army's Kroc Center. The Kroc Center averages 500-1000 visitors per day in addition to the Center's website, which averages 1200 unique visits per day.